RUI: Distribution of Starch in Tissues of Source Leaves During Various Phases of the Life Cycle

RUI: Distribution of Starch in Tissues of Source Leaves during Various Phases of the Life Cycle: Dr. Fondy will test the hypothesis that starch in leaves is heterogeneous with regard to location, structure and metabolism depending on the function it is intended to fulfill. This will involve a multi-pronged approach including biochemical, C-14 labeling, histochemical and electron microscopic studies. Undergraduates will participate in the research. The results of this research will contribute to an understanding of carbon distribution in crop plants and how it is controlled on a daily as well as a seasonal basis. This can form the basis of practices that increase proportions of photoassimilated carbon sent to harvestable plant parts.